Support of Minority Faculty to Attend CSC '91 and SIGCSE '91

This project funds the participation of 28 minority faculty at the ACM CSC 91 and SIGCSE 91 conferences to be held in San Antonio, TX, March 5-9, 1991. There is a number of planned special activities which are important to minority faculty, particularly those from minority institutions. Among the planned activities are (1) special sessions addressing unique programs for minorities, (2) panels addressing federal funding possibilities for minority research programs, (3) an employment register, (4) graduate schools describing opportunities for minorities, and (5) a special session in the chairs' program addressing problems associated with administering a computer science program at a minority institution. This project funds the participation of 28 minority faculty at the ACM CSC 91 and SIGCSE 91 conferences to be held in San Antonio, TX, March 5-9, 1991. It is important that minority faculty attend national conferences in order to become better integrated into the research and education communities. This project represents a strong effort in that direction.